U.S.-Germany Cooperative Research: Developing Short-Range Repulsive Potentials for the Aqueous Processing of Silicon Nitride Powders

This award supports Dr. Frederick F. Lange, a postdoc, and three graduate students from the University of California-Santa Barbara in a collaboration with Fritz Aldinger and Wolfgang Sigmond of the Institute of Non-Metallic Inorganic Materials at the University of Stuttgart. Both groups are working on developing short-range repulsive potentials for silicon nitride (Si3N4) powders to allow consolidated powder bodies to have a clay-like consistency needed for forming reliable engineering shapes. The U.S. group has already shown that short-range potentials can be created for Si3N4. The German group are investigating various chem-adsorption techniques, and are studying the processes involved with state-of-the-art methods and facilities such as Atomic Force Microscopy. Silicon nitride is the most promising structural ceramic for use in advanced heat engines.